Mathematical Sciences: Gradient Projection and Lagrangian Augmentation Methods for Optimal Control and Other Large Scale Nonlinear Programs

This project will develop analytical and numerical studies directed at hybrid computational schemes that use Lagrangian augmentation technology to treat problems with intricate constraints implicitly, and gradient projection methods to handle simpler constraints explicitly. These studies are motivated by questions in optimal control where there is the need to solve large systems of equations subject to contraints with special mathematical structures. Optimal control problems arise naturally in engineering and natural sciences.